Dependence of Diffusive Permeation Selectivities and Rates on Upstream and Downstream Pressures

A theoretical model is being developed describing the effects of upstream and downstream pressure on selectivity and rate of permeation and pervaporation of multicomponent liquid mixtures through polymer membranes. The experimental results from two component systems are in agreement with the model predictions, and confirm the expected influence of downstream pressure in pervaporation-type experiments. Investigations are continuing on the selective permeation of water/ethanol in cellulose acetate membranes, including those very lean in ethanol; interpenetrating-type polymer composite membranes; the two-phase permeate region; permeant pairs with very large solubility and/or diffusivity characteristics in the membrane; and the effects of temperature.